Research Equipment Grant: Experimental Investigation of High-Frequency Power Converters

9500465 Batarseh The Electrical and Computer Engineering Department at the University of Central Florida (UCF) will purchase research equipment that include: HP3580A-Spectrum Analyzer, HP6060A-DC Electronic Load, HP6655A-DC Power Supply, TEK371A-Power Device Testing and 50MHz Current Probes which will be dedicated to support research in power electronics. The equipment will become permanent part of the Power Electronics Research Laboratory at UCF, and will be used to support the three research projects proposed here. These projects will investigate the dynamic behavior of high frequency, high power density power converters and their use as power factor correction. The PI has developed an innovative analysis technique to obtain frequency response for high-frequency dc-to-dc resonant converters by using improved dynamic modeling. Based on the derived model, a closed loop controller design methodology for such converters was developed. In this project, experimental investigation of the derived small signal modeling will be carried out. Specifically, the objectives of the proposed research are: 1) Develop dynamic models by including the high frequency parasitic components such as transistor and diode junction capacitances and power transformer leakage inductances, in the power converter models. 2) Based on this modeling, the design of a suitable feedback controller for various resonant converter topologies will be investigated. Also by using the u-synthesis approach, the design of robust controllers for both high order series and parallel resonant converters will be carried out. 3) Using the Zero-Voltage Switching technique, high power factor correction resonant circuits will be designed, tested and evaluated. 4) Experimental studies will be conducted to verify the theory and the practicality of the developed dynami c models for high frequency converters, and their applications as power factor correction. ***